Submillimeter Spectroscopy of Interstellar Molecules at 345 GHz

A large number of facilities are becoming available for observations in the submillimeter wavelength region of the electromagnetic spectrum. Several new highly accurate telescopes have begun operating at dry, high altitude sites. Dr. Sutton has constructed a receiver, for work at submillimeter wavelengths, which is one of the best available. The confluence of this technological advance in receiver design with the proliferation of telescopes promises exciting astronomical accomplishments over the next few years. This grant will support Dr. Sutton's astronomical research using the receiver he built for operation at frequencies around 345 GHz. The instrumentation will be further improved and used to address a variety of astronomical problems, particularly in the areas of galactic structure, interstellar chemistry, and regions of star formation. At least initially, the receiver will be operated on the 10.4 meter diameter telescope of the California Institute of Technology Submillimeter Observatory located on Mauna Kea, Hawaii.